Undergraduate Faculty Enhancement in Fluid/Particle Processing

9354026 Tiller Four one-week short courses in the field of fluid/particle processing and separation will be offered in the summers of 1994-1995. The four short courses are aimed at introducing faculty members to this important field and providing guidance for teaching related undergraduate courses. The four courses are: particle science and interfacial engineering; fluid/particle separation; fluid/particle processing; and aerosol processing. ***